Derived Moduli Spaces and Applications

Working with his colleagues, the investigator will develop the
formalism of Derived Deformation Theory. This theory aims to
resolve in a systematic fashion many of the difficulties arising
from the fact that moduli spaces in algebraic geometry related
to higher dimensional varieties are typically singular. The basic
idea is that the correct object to consider for a moduli problem
is some ``derived moduli space'' which should be manifestly smooth
in an appropriate sense and should carry a differential-graded
structure sheaf. The usual moduli space is obtained from the derived
version as the degree-zero truncation, and this explains its singular
nature. In recent work, Ciocan-Fontanine and Kapranov defined and
studied the ``right derived category of schemes'', whose objects are
differential-graded schemes, and they have constructed the derived
version of Grothendieck's Quot scheme. The investigator will extend
the formalism to a larger category of differential-graded stacks, and
use it to construct derived versions of some other important moduli
spaces in algebraic geometry (such as moduli of vector bundles, stable
maps, etc.). As a first application of the theory, it is proposed to
give a simpler and more general construction of the virtual fundamental
classes of Behrend-Fantechi and Li-Tian. This new construction is
expected to be better suited to investigate the properties of virtual
fundamental classes in the case of moduli of stable maps of higher genus
to a hypersurface in a Fano manifold and to understand mathematically
mirror symmetry at higher genus. The project has also a part dealing
with some explicit calculations of genus zero Gromov-Witten invariants
of flag manifolds, and applications to mirror symmetry.

This is research in the field of algebraic geometry, which is one of the
oldest branches of modern mathematics. In recent years, the methods and
ideas of algebraic geometry, especially the study of moduli spaces, have
been employed in string theory, a very active part of theoretical physics.
Developments in string theory have sparked a fruitful interaction between
the two communities of researchers and have led to the discovery and study
of many striking new phenomena. Mirror symmetry is one example.
It is expected that a better understanding of moduli spaces in algebraic
geometry will lead to more applications to string theory.